Science Institutes for Elementary Teachers

Weber State College is offering a series of three intensive two-week summer institutes and academic year seminars for 60 elementary teachers each year from intermountain northern Utah. The program will provide broad, comprehensive instruction and activities in life, physical and earth sciences as they apply to the state of Utah's new guidelines for elementary school science. Each participant will have to make a six- week commitment to insure that all three workshops will be completed. One-on-one follow-up visits by staff to each participant's classroom will aid in implementing changes in teaching/learning strategies. Academic year seminars will provide the opportunity for discussion, support, and evaluation. Each participant will develop his/her own resource guide and construct inexpensive equipment for use in the classroom. A unique component of this project is the involvement of preservice elementary school majors who will be interning with participants during the summer program.